Probing Magnetization Effects on Crossbeam Energy Transfer

This award supports a study of how magnetic fields change the transfer of energy between intersecting laser beams with implications for laser-driven fusion energy and national nuclear security applications. Extremely strong magnetic fields are naturally generated or externally applied in many laser experiments. However, how magnetic fields affect the lasers remains poorly understood. Improved understanding of laser beam energy transfer in the presence of ultra-strong magnetic fields will make the performance and the computer models of laser-driven experiments more reliable, with novel machine learning (ML) techniques to be developed and used for data analysis as a crucial step towards quantitative comparisons between the experiments and the simulations. The resulting models can be used by national laboratories and private companies to accelerate the development of fusion energy technologies, with further impacts for national security, industrial, and medical applications. This project will support the training of an undergraduate student, a graduate student, and a postdoctoral researcher in high-energy-density science, an area important to the future scientific and technical workforce of the United States.

The project will study magnetized crossbeam energy transfer, a laser-plasma interaction process in which energy is exchanged between laser beams in the presence of magnetize plasmas. The central scientific question concerns how magnetization changes the coupling of laser beams with different polarizations. The project will test the hypothesis that coupling between parallelly polarized lasers is suppressed, while coupling between perpendicularly polarized lasers becomes possible in the presence of a strong magnetic field. Experiments will be carried out at the OMEGA Laser Facility at the University of Rochester in collaboration with scientists from the Lawrence Livermore National Laboratory and will use externally applied magnetic fields spanning a wide range of strengths. ML-based data analysis, radiation magnetohydrodynamic and particle-in-cell simulations will be used to guide experimental design, interpret measurements, and compare theory with observations. The outcome of this project is expected to improve first-principles models of magnetized laser-plasma interactions and provide new insight into plasma behavior relevant to magneto-inertial fusion and other laser-driven high-energy-density systems.